SBIR Phase I: A Robotic Arm Architecture for Affordable Robots with Enhanced Reach and Payload

The broader/commercial impact of this Small Business Innovation Research Phase I project lies in its potential to revolutionize automation in critical U.S. industries, including agriculture, construction, and warehousing. Traditional robot arms are often prohibitively expensive and lack the performance capabilities required for many real-world applications, such as tasks involving high reach and heavy payloads, including fruit picking, painting, and shelf loading. This project will result in a novel robotic arm technology designed to overcome these limitations by providing significantly improved reach, payload capacity, and affordability. By enabling automation of physically demanding and hazardous tasks, this innovation aims to reduce workplace injuries, lower insurance costs, and enhance worker safety. Moreover, automating these roles will create opportunities for higher-paying, skilled positions, fostering economic growth and improving job quality. The resulting advancements in automation will also help lower costs associated with food production, construction, and consumer goods, benefiting the broader U.S. economy. Additionally, the novel robotic arm technology will open new avenues for research and innovation, enabling robotics educators and researchers to explore applications previously constrained by the limitations of existing technology.

This project will develop a robotic arm architecture featuring proprietary linear actuation technology to achieve commercial performance in reach, payload, and cost-efficiency. The technology innovates on lightweight, high-extension actuators in a parallel truss configuration to reduce bending stress and maintain precision over extended distances. Research tasks include developing simulation tools to model robot dynamics and environmental interactions, and integrating sensory modules for real-time feedback and collision detection. The project will deliver a fully integrated prototype capable of demonstrating its performance in industrial conditions. This work addresses limitations of traditional robot architectures and provides a scalable, cost-effective automation solution for industries such as agriculture, construction, and warehousing. The resulting technology will support increased commercial adoption of robotics in these fields and offer a high-performance platform for further research and development.